Support for a Scientific Secretariat for the SCOR/IOC Committee on Climatic Changes and the Ocean (CCCO)

The CCCO will continue to oversee and coordinate scientific planning for two important oceanographic components of the world Climate Research Program (WCRP) -- the World Ocean Circulation Experiment (WOCE) and the Studies of Interannual Variability in the Tropical Ocean and the Global Atmosphere (TOGA). The CCCO will increase its interaction with the ICSU/WMO Joint Scientific Committee for the WCRP in order to develop more effective cooperation between oceanographers and meteorologists involved in the WCRP, in particular to establish a basis for truly joint efforts under the WCRP's Global Energy and Water Cycle Experiment (GEWEX) now being planned. Staff services will continue to be provided to the CCCO into 1992.